Data Visualization, Reduction and Analysis Software for Single Crystal Time-of-flight Neutron Diffraction Instruments

This award to the University of Wisconsin-Stout supports undergraduate students' participation on software development for Single Crystal Diffractometers (SCD) at the Spallation Neutron Source (SNS). SNS provides support for senior staff from University of Wisconsin-Stout during a sabbatical leave granted to one of the principal investigators by UW-Stout. The project is focused on raw data reduction and visualization needs of the SCD instruments at the SNS. Specifically, the project scope includes the following objectives: (1) to support and revise the basic SCD data reduction tools of the Integrated Spectral Analysis Workbench (ISAW) software developed by the principal investigators; (2) to develop tools for efficiently and flexibly forming histograms of event data in reciprocal space for efficient interactive visualization of reciprocal space and future studies of diffuse scattering; (3) to develop new and improved visualization software for SCD data and reciprocal space; (4) and to continue to support and extend the functionality of the ISAW viewers and code base to support their use at the SNS and elsewhere in the neutron scattering community. Undergraduate students will help support and extend the ISAW code base and will be involved in the design, implementation and testing of components for the first three goals listed.